Vortices and Turbulence in the Equatorial Ocean

Theoretical and numerical investigation of ocean physical processes, particularly wave dynamics in low latitudes, are continuing. The major thrust of the project is to study equatorial vortices and turbulence via a numerical time-integration model. The goals are to understand equatorial turbulent funneling of energy towards the equator, vortex condensation, potential vorticity/ streakfunction relationships and stability of large amplitude solitons.